A Nondestructive Evaluation System Using High Tc Superconducting Technology

The objective of this SIRB Phase I project is to demonstrate the feasibility of a high Tc superconducting wire as an NDE sensor. THe wire will consist of a copper core with a ceramic outer surface which will be manufactured with a new annealing process.